Research Experiences for Undergraduates in Software Tools for Parallel Program Development and Assessment

This project will bring seven students per year to the Computer Science Engineering Department's Architecture and Parallel Processing Laboratory at the University of Texas at Arlington. The focus of recruiting will be on upper division women, minority, and disabled students, with special emphasis on institutions in the Dallas/Fort Worth area that lack research facilities. The program will extend over a three year period. The students will investigate problems related to parallel program development, debugging, scheduling, and performance profiling.